RUI: Computational and Combinatorial Commutative Algebra

Sidman proposes two main lines of investigation. The first involves
lexicographic Groebner bases and the other has to do with properties of
secant varieties. The goal of her work on lexicographic Groebner bases is
to use the notion of Castelnuovo-Mumford regularity to produce concrete
statements about the complexity of the lexicographic term ordering and the
geometry of projections that would explicitly confirm long-held beliefs
about their behavior. She also proposes to work on several problems in
which computational and combinatorial methods are applied to the study of
secant varieties. Interest in secant varieties has arisen in diverse
areas including algebraic geometry, coding theory, computational
complexity, and algebraic statistics. Recent applications of secant
varieties in algebraic statistics have brought both new techniques and new
questions to the forefront.

In the undergraduate mathematics curriculum the objects of so-called
"modern" algebra, groups, rings, fields, and modules, have a reputation
for being very abstract. Indeed, the names "modern algebra" and "abstract
algebra" are often used interchangeably. The power of the abstraction
only becomes evident when one sees how these ideas enable us to discuss an
increasingly large variety of applications in a common framework.
Computational algebra is an area that is useful to pure mathematicians in
algebraic geometry and commutative algebra. It is also able to bridge the
divide between abstract algebra and many concrete applications including
integer programming, enumeration problems in statistics, and geometric
modeling. Sidman's first project connects computational algebra with
algebraic geometry. The questions she proposes to study related to secant
varieties are also related to algebraic geometry, but were motivated by
work in the emerging field of algebraic statistics. Thus, the proposed
work reflects the ways in which pure and applied mathematics influence
each other, often in unexpected ways.